Travel: NSF Student Travel Grant for 2022 IEEE International Symposium on Hardware Oriented Security and Trust (HOST)

Trusted hardware is the foundation of cybersecurity. The International Symposium on Hardware-Oriented Security and Trust (HOST), being held in Washington, D.C on June 27-30, 2022, is a leading forum for hardware security researchers. This travel grant enables approximately 60 student researchers, especially those from underrepresented groups in computing to attend the symposium in-person. The project's broader significance and importance include professional development for undergraduate and graduate students as well as continued growth of the symposium. Students’ attendance enables them to learn about the latest tools, design methods, architectures, circuits, and novel applications of secure hardware.

Technical contributions from previous symposia have covered topics such as: (1) counterfeit detection and avoidance, (2) side channel analysis and fault analysis, (3) hardware architectures for cryptography, and (4) physically unclonable functions (PUFs). The travel grants encourage more students to consider a technical submission, participation in growing hardware demonstration space to a large diverse audience, or even to attend as a means to prepare for a technical submission in future years.